NSF Young Investigator

The objective of this research is to develop new geotechnolgies (i.e. Piezo-vibrocone penetrometer) and integrate recent research and development technologies (i.e. high-energy plasma arc torch) into the practices of civil, environmental, and earthquake engineering. The implementation of these devices will provide significant improvements in our understanding of earthquake- induced liquefaction behavior, environmental containment of wastes, and ground modification techniques.